Recursion Theory and Effective Aspects of Randomness

Slaman proposes to investigate the effective aspects of randomness. The central question
to be answered is, "How can we evaluate the random content of an infinite binary
sequence?" One case is well understood, that in which an infinite sequence X of 0's
and 1's is random if and only if each digit is chosen independently and with equal
probability for the values of 0 and 1. In this case, X's being effectively random has
been equivalently characterized by Martin-Lof in terms of X's having the properties
of almost all infinite sequences and by Kolmogorov and others in terms of X's being
unpredictable and indescribable. Slaman proposes to study the non-uniform case, its
associated criteria for effective randomness, and its possibilities for the sets of random
sequences. Even the most basic questions are open. For example, for a given infi-
nite binary sequence X, under what conditions does there exist a measure relative to
which X is random? This is a classic mathematical problem, given an individual data
set determine a distribution which would generate it. Qualitatively, a measure relative
to which X is random concentrates on the nonrandom aspects of X and thereby separates
those from the random ones. Other ways to quantify X's random content include
the complexity of X's initial segments and X's ability to compute uniformly random
sequences. The proposal is to investigate all of these and the relationships between
them.